Development and Analysis of Arctic Basin-Scale to Local-Scale Gridded Products in Support of Modeling Investigations during the SHEBA Period

This project is part of an integrated set of proposals for the Surface Heat Budget of the Arctic (SHEBA) Ocean project. The goal of the current phase of the SHEBA project is to use data collected during a one year experiment during which an icebreaker frozen into the ice pack of the Beaufort and Chukchi Seas was used as a platform for data collection. A full annual cycle of data relating to feedbacks of the ocean-ice-atmosphere system was collected and will be used to improve model parameterizations of sea ice response to global warming. This project will process all satellite data taken during the field experiment and provide a final product of surface conditions that can be merged with aircraft data of surface properties. The merged data set will be valuable for modeling of ice and atmospheric conditions over a range of climate conditions. The activities of this project are an essential effort to enhance the outcome of the SHEBA research projects designed to improve column, mesoscale and General Circulation Models (GCMs) that facilitate better simulations of the Arctic sea ice response to projected global warming trends.